Collaborative Research: Investigating aerial maneuvers in bat flight using experiments, mathematical modeling, and robotic mimicry

Bats are known for their aerial acrobatics skills that enable them to maneuver in dense vegetation, to catch preys, and find nutrients. Accomplishing these multitude of functions requires the bats to control, adapt, and coordinate their wing motions, body posture, and internal actions that they engage in while airborne. This project seeks to understand how bats master the integration of kinematics, aerodynamics, and control in such complex aerial behaviors. This would shed light on underlying fluid dynamics and kinematic controls in biology, and also impact the ability for engineers to replicate such abilities in technical systems in the next-generation multiple-functioning drones with flapping flight.

The goal of the project is to understand aerial multi-tasking by bats based on comprehensive experiments and mathematical models. The project will obtain experimental data from two different approaches: The morphing wing kinematics of the bats during demanding flight maneuvers and behavioral multi-tasking situations will be recorded with an array of synchronized high-speed cameras and processed with deep learning methods. These biological data will be complemented by experiments with a biomimetic robotic system that will be implemented to mimic the bats' morphing wings and will be used to explore a larger parameter spaces than would be possible with observations of the animals. This will provide insights into the effects of different kinematic patterns. In parallel, mathematical models of flapping flight will be developed to extract the key physics in the sophisticated maneuvers seen the in the experiments. The simulation of flapping flight will further elucidate the trade-off between the energetics and stability of flight. Throughout the project, we will actively disseminate our findings to educate K-12 students and the general public. Since the bat experiments will be performed at the University of Brunei, the project will give participating undergraduate and graduate students unique exposure to the outstanding biodiversity of Borneo's rainforests.